Acquisition and Development of Equipment for Orthopaedic Research at Colorado State University

9512236 James This award is to provide for the purchase of scientific instruments that will strengthen and unify the research and research training activities of the institution's Orthopedic Research Group. The equipment obtained through this award will provide enhanced capability to the twelve faculty of the Group who are conducting research on polymers for total human joint replacements, analysis of retrieved orthopedic implants, new designs and materials for external fixation pin technology, fracture repair with calcium phosphate bone cement, and other related projects. The proposal leading to this award was submitted in response to the National Science Foundation's Instrumentation Development and Acquisition Solicitation, NSF 94-156, Academic Research Infrastructure Program. Results of this program are expected to improve the accessibility of modern research instrumentation for use by the institution's faculty in conducting research on important topics of significance to progress in biomedical engineering, particularly in the area of improved prostheses for human use. ***